A Computer Laboratory for Calculus

Students are becoming active participants in learning the ideas of calculus using a laboratory equipped with IBM PS/2 Model 30 computers running MicroCalc. The institution will contribute an amount equal to the award.